SBIR Phase I: Catalyst Energy Recovery Utilizing a SuperTurbocharger

This SBIR Phase I project will develop a mechanical device that provides functionality as a turbocharger and that will recuperate exhaust energy to be transferred to the transmission when boosting is not needed. The innovation is a unique design that integrates turbocharging, turbocompounding, and supercharging into one compact device that uses an infinitely variable speed transmission.

The broader/commercial impact of the project will be a reduction in fuel consumption in two ways. First is direct heat and energy recuperation from the exhaust stream. Second is to enable downsizing of internal combustion engines as a means to increase fuel economy. Turbocharging can be used for that purpose but adds driveability issues (turbo-lag). The proposed innovation could solve this problem.